NER: Dynamics of Quantum Control with Dissipation

his proposal was received in response to NSE, NSF01-157. Quantum
computing offers the prospect of computational power far beyond that
which could be obtained merely by scaling current technologies to
ever-smaller scales. However, recent "proof-of-principle"
realizations of quantum computers do not appear to be amenable to
large-scale integration, like current solid-state technology. One
of the outstanding unsolved problems in materials theory is
understanding the feasibility of a solid-state quantum bit (qubit),
the fundamental building block of a quantum computer. The proposed
research will study the possibility to use a pair of extremely
small semiconducting islands (with diameters less than 20
nanometers) as a solid-state qubit. The dynamics of quantum
control in this system will be investigated theoretically,
including the coupling to the environment, which tends to "collapse
the wavefunction" of the qubit. This problem is an example of a
very general problem in quantum mechanics, that of tunneling in the
presence of a dissipative environment. It is closely related to an
analogous problem in nuclear physics, the decay of a superdeformed
nucleus. Progress in understanding the proposed mathematical model
is thus likely to impact not only nanoscience and quantum
computing, but also nuclear physics (femtoscience).

As a testbed for the solid-state qubit, it is proposed that such a
double quantum dot can be operated as an electron pump with a
quantized electrical current. Because the operating frequency of
the proposed electron pump would be much greater than that of
previous quantized current sources, it could be significant for
metrology. The accuracy of the current quantization in this set-up
is a measure of the fidelity of the qubit under repeated logical
manipulations. This research is cofunded by the Divisions of
Materials Research and Physics.